Advanced Strategies for Process Control and Manufacturing

Adaptive control systems automatically adjust their controller settings to compensate for changes in the process or environment. It is attractive for difficult control problems where the process is poorly understood and/or changes in unpredictable ways. One type of adaptive controller uses self-tuning control (STC) mechanisms, which estimate model parameters on-line and adjust controller constants based on the current parameter estimates. Much work has been done in this area using linear models but little using non-linear models. A priori knowledge of a particular system's nonlinearities will be used to design STC strategies. The algorithms will be experimentally verified using a pilot size distillation column. Another complex area is systems which have multiple inputs and multiple outputs. Designing STC for such systems contitutes the second part of this work.